A Distributed Computing Facility

This infrastructure award is for the construction of a distributed computing facility. The network consists of desktop workstations connected over a medium speed network to back-end computation and data-storage servers on a high-speed network. The back-end resources consist of mid-speed compute servers, shared memory parallel multiprocessors, and massively parallel machines. The research supported by this infrastructure includes work in applied logic using the constructive type theory supported by Nuprl; in scientific computing in developing algorithms that effectively utilize distributed and massively parallel computing resources; in modeling and simulation for robotics applications; and in software for distributed computing. Many problems in experimental computer science require peak resources not available on a single workstation. These resources could be computation cycles or memory. An emerging solution to this problem is to utilize idle processors in a network of workstations and compute servers. The realization of this solution still requires much research into mechanisms for breaking problems into pieces so as to minimize communication overhead while distributing the computation to make best use of the available processors. The distributed computing researchers at Cornell University will use their distributed computing facility as a testbed for distributed algorithms. Three active areas of research at Cornell will especially benefit from this facility. The applied logic group uses a system called Nuprl developed at Cornell to support constructive reasoning. With the use of this tool, open questions in combinatorics and programming language have already been answered. The scientific computing group is already involved in the construction of a software package called LAPACK for linear algebra routines that involves constructing new algorithms for parallel and distributed machine architectures. Finally the modeling and simulation group requires substantial computational resources to enable them to use the computing resources as an experimental testbed allowing designs to be tested without the expense of constructing a robot.